Program for Attracting and Retaining Scholars in Computer and Mathematical Sciences

The major objective of this program is to increase the overall number of graduates in computer science and mathematics coming from economically disadvantaged backgrounds. We are especially interested in increasing the opportunities for students from the Northwest North Carolina region to pursue a degree in computer science or mathematical sciences. In order to achieve this goal, we are improving the student support infrastructure available for the CSEMS scholars community, and building partnerships with regional high technology industries. Scholars in the program participate in a variety of activities and use support services designed to achieve program goals. Community building is by participation in Freshmen Learning Communities, membership in student organizations like ACM and MAA student chapters, and departmental receptions and seminars. Academic success is bolstered through faculty mentors, lab tutors, and the extensive university support services. Through the Cooperative Education program, the Computer Science Industry Advisory Board, and ASU's Career Development Center, scholars are positioned to take advantage of a variety of employment opportunities in the high technology workforce.